Project ASTRO Coalitions

9552551 Fraknoi The Astronomical Society of the Pacific requests $1,317,701 over three years to implement its California pilot project to six sites around the country. Each site will establish local, self- sustaining coalitions linking science centers, astronomical institutions, school districts, and community groups. These coalitions will, with training and support from the national Project ASTRO staff, identify, link, and support the astronomer/teacher partners in their area to use the excitement of astronomy to improve the teaching and learning of science in elementary and middle school. A second strand of the project will use the Project ASTRO materials and techniques to train astronomers and teachers at national meetings outside the six sites to set up individual ASTRO partnerships on their own. Materials to be produced include a: Project ASTRO Coalition Manual; Training Manual; update to the Resource Notebook for the Teaching of Astronomy. Target audiences are students in grades 4-9.